Trace metal signatures in continental sedimentary systems: Isotope constraints, biogeochemistry, and potential as a paleoclimatic tracer

Intellectual merit. The proposed work will address hypotheses regarding the
biogeochemical interactions that lead to the removal of molybdenum, uranium, and
vanadium from aquatic systems and the fractionation of Mo isotopes that occurs during
organic matter decomposition. Our study site, Lake Tanganyika, is an ancient rift lake that
has an oxygenated upper water column and sulfidic deep waters. The existence of
sedimentary deposits underlying both these waters offers an exciting and timely opportunity
to quantify changes in metal solubility and to test predictions regarding isotope fractionation
associated with metal precipitation. Our work is guided by two hypotheses that predict a
close link between metal accumulation rate and carbon cycling. These hypotheses predict
different behavior for Mo isotopes depending on whether or not the overlying water has
sulfide present. (1) In regions where the overlying water column is absent of sulfide, we
hypothesize that trace element accumulation in the sediments and Mo isotope compositions
are closely coupled to the cycling of organic carbon. (2) Where sediments are bathed with
sulfide-rich water, we hypothesize that trace element enrichments remain sensitive to the
organic carbon cycling but Mo isotope values are invariant. Although we use these
hypotheses as a guide for our research, we do expect that the targeted elements will exhibit a
range of sensitivities to organic carbon cycling and water column sulfide concentrations.
Broader impacts I: Scientific value. The targeted elements already offer potential as
biogeochemical tracers, and this proposal represents an exciting opportunity to address
important issues regarding their environmental chemistry. Molybdenum isotopes also
retain potential as a tracer for the availability of oxygen and sulfide through geologic time,
and this proposal will allow us to examine how the presence of water column sulfide
influences Mo isotope behavior. Finally, the African Great Lakes harbor rich records of
climate history extending back to the Miocene. What we offer here is an opportunity to
calibrate a suite of sedimentary tracers that could ultimately provide powerful insights on
biogeochemical process, not only in Tanganyika, but in other sedimentary systems as well.
Broader impacts II: Human impacts and opportunities for education. Lake
Tanganyika is a valuable resource to the East African people. The lake contains a
significant fraction of the Earth's fresh water and supplies the economies of several nations
with a valuable fisheries resource. In a broad sense, this proposal offers tools for
addressing questions related to how the lake's carbon dynamics have responded to past
changes in climate. As part of this proposal, McManus will be participating in the Nyanza
project during the summer of 2006. The Nyanza Project is an undergraduate/graduate field
research program that offers opportunities to study paleoclimatology and geology in a
continental rift cradling one of the world's oldest lakes. As a participant in the program
McManus will be engaged in training both U.S. and African students, and we plan on
having one African student and two U.S. students working on our field research. We will
also support an OSU undergraduate during our second year of funding. Undergraduate
students have contributed significantly to the PI's research program resulting in abstracts
delivered at major conferences, university-wide student research programs, and coauthorship
on two manuscripts. Our college is beginning to engage students from our university's
honors college in research and we are planning on initiating an REU program in the near
term. We anticipate having a student from one of these programs participating in the
proposed research as well. Finally, this proposal will provide support for a postdoctoral
research associate (Chris Siebert).